Purchase of an Electron-spin Resonance Spectrometer

With this award from the Chemistry Research Instrumentation and Facilities (CRIF) Program, the Department of Chemistry at the University of Idaho will acquire an Electron-spin Resonance Spectrometer. The new instrument will support the research in the following areas: a) characterization of ansa-chromocene complexes; b) investigations of protein-small molecule interactions; c) studies on the coordination geometry of nitrosyl ligands in photoexcited transition metal complexes; d) molecular-level basis for antioxidant mechanisms of flavonoids; e) investigation of Cu sorption mechanism on clay minerals; and f) properties of Pdtc as a bioremediation agent.

An electron paramagnetic resonance (EPR) spectrometer is an instrument used to obtain information about the molecular and electronic structure of molecules. It may also be used to obtain information about the lifetimes of free radicals that are often essential for the initiation of tumor growth and/or a variety of chemical reactions. These studies will have an impact in a number of areas, in particular biochemistry.